Dynamics in Physical Models

The project is devoted to dynamical systems of physical origin,
including Lorentz gases (both in equilibrium and under external
forces), hard ball systems, billiards, ideal gases with a massive
test particle, and open Hamiltonian systems. Most of these are
known (or expected) to have chaotic behavior. Due to recent works
of D. Dolgopyat, D. Ruelle, Ya. Sinai, L.-S. Young and others,
mathematical tools in the theory of hyperbolic and chaotic
dynamical systems appear to be developed far enough to attack many
open problems that have been so far only studied heuristically or
numerically by physicists, if at all. In particular, we plan to
investigate the nature of nonequilibrium steady states by means of
Sinai-Ruelle-Bowen measures, time correlation functions that
appear in transport laws and diffusion equations, open Hamiltonian
systems that admit conditionally invariant measures, the motion
of a massive particle in an ideal gas by using an appropriate
space-time limit, etc. In each case we aim at obtaining exact
results and providing solid rigorous proofs.

The general goal of the project is to conduct mathematical studies
of facts and phenomena that have attracted attention in physical
community and have applications outside of mathematics. In
particular, the results would contribute to the mathematical
foundation of statistical mechanics and thermodynamics and could
strengthen the link between the theory of dynamical systems and
physics and other sciences.